Multiplicities and Local Cohomology in Commutative Algebra

This proposal studies two questions in the Homological
Conjectures in Commutative Algebra. The first is on
intersection multiplicities defined by modules of finite
projective dimension. This part of the proposal studies
the action on thAbstract
e Chow group defined by such a module.
A theorem of the Principal Investigator and V. Srinivas
answers this question in the case of dimension zero,
and this research will investigate the more complicated
situation in higher dimension. The second part concerns
the question of whether there are small annihilators of elements
of local cohomology groups in finite extensions. This
question was inspired by a recent result of Ray Heitmann,
who proved that small powers of the prime p achieved this
in rings of mixed characteristic in dimension three and
used this fact to prove the Direct Summand Conjecture in that
case. In this proposal we consider alternative approaches
in mixed characteristic and whether similar results hold
in characteristic zero.

One of the problems that often arises in mathematics
is how to measure the order of tangency, or multiplicity
of intersection, of subspaces of a space. These numbers are
used, for example, to count how many solutions a given equation has
or how many geometric objects of a certain type there are.
While computing the order of tangency may seem simple for
curves intersecting in the plane, in higher dimension it can
be quite complicated. This proposal deals with questions that arise
from attempting to measure these algebraically. More specifically,
the methods use Homological Algebra, and they have
given rise to a set of questions known as the "Homological Conjectures."
The particular questions in this proposal concern determining
whether these invariants are zero and studying their consequences for
the structure of rings and modules.